Travel Grant: For Faculty from Under-Resourced Institutions to the American Meteorological Society (AMS) Community Meetings in 2024

This award will initiate a Travel Grant program for faculty from institutions such as Emerging Research Institutions (ERIs) and community colleges. Faculty at these institutions often have higher teaching loads and do not have access to significant travel funds, making it more difficult for them to attend scientific conferences. Attendance at these conferences will allow the faculty to establish connections to other researchers and bring back the latest innovations in research and teaching to their classrooms.

The American Meteorological Society (AMS) will administer a Travel Grant program for faculty. AMS hosts an Annual meeting with thousands of attendees and smaller specialty meetings throughout the year. Faculty at ERIs and community colleges will be able to apply to receive funding for travel and conference registration costs.